UDC R4 Planning Grant

This project is designed to develop five-year planning activities in four main categories: computing hardware, four areas of research, opportunities for faculty research and training, and recruitment of new computer science and engineering faculty (CSE). The objectives are to develop detailed plans for: 01. Upgrading the hardware of the COSDET Center for the four research areas selected. 02. Establishing and upgrading laboratories and programs for research work in: software engineering laboratory; intelligent databases and expert systems; knowledge representation and cognitive sciences; and networking and communications research. 03. Offering a two-phase program of research and training opportunities for presently employed faculty in computer science and engineering (CSE). 04. Recruiting new faculty with terminal degrees in the discipline of CSE.